Electrical conductivity of synthetic pyrolite under deep upper mantle and transition zone conditions

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

The purpose of this projects is to provide a new set of laboratory data
to understand the deep mantle water cycling. Possible melting near the
410-km and its consequence on geochemical cycling have been speculated.
However, there have been no definitive studies on the conditions for
partial melting under the deep upper mantle conditions. Consequently
there have been large uncertainties on the critical water content. In
this proposal, our efforts are focused on determining the critical
water content for partial melting near 410-km depth. The critical water
content for partial melting is a critical parameter to understand the
deep water cycling including the origin and evolution of the ocean mass
and the processes to control the water content in the upper mantle. In
this project, we will use electrical conductivity to determine the
onset of partial melting and consequently, the results of this work
will also provide a critical new data set to interpret the distribution
of electrical conductivity in terms of temperature and water content in
the mantle.

The conditions for partial melting involving water are difficult to
determine experimentally. We will investigate the phase diagram of
water + peridotite system by measuring electrical conductivity. we
anticipate that the onset of partial melting will dramatically change
the conductivity and consequently, by measuring the electrical
conductivity, we should be able to detect a small degree of partial
melting. Experiments will be conducted using an impedance spectroscopy
with a multianvil apparatus under the conditions of P (pressure) =4-16
GPa, and T (temperature) = 1000-1900 K. The partial melting will be
detected by a jump in conductivity as well as the change in the trace
element concentrations. The results have an important implication for
the deep mantle water cycling as well as the interpretation of
electrical conductivity.